U.S.-Sweden Cooperative Research: Atomic Structures and Transition Rates in Multiply-Ionized Atoms

This three-year award supports U.S.-Swedish cooperative research in experimental atomic physics between A. Eugene Livingston of the University of Notre Dame and Indrek Martinson of the University of Lund in Sweden. The primary objective is to advance knowledge of the energy structure and transition rate properties in selected heavy ions by measuring their atomic structures and transition rates. Using primarily the techniques of fast-ion-beam excitation, the investigators will perform experiments on the (1) Rydberg transitions in sodium-like ions; (2) spectra and lifetimes in nickel-like atomic structures and transition rates in high-Z x-ray lasers; and (3) lifetimes in zinc isoelectronic sequence. The investigators will participate in specific joint experiments and conduct in parallel the analysis and interpretation of data. The proposed theories and experiments have applications in plasma physics and astrophysics and could contribute to the development of new energy sources. The project will benefit from the complementary capabilities and facilities of the investigators. Livingston and his Notre Dame group offer a strong theoretical program in atomic structure theory. Dr. Martinson's experimental group in Lund are experts in determining energy levels and transition rates of highly ionized atoms. The accelerator capabilities at Notre Dame and Lund offer differing energy ranges and this will prove advantageous for experimentation over a wide range of ionization stages.